Doctoral Dissertation Research: The Israeli-Military Courtsin the Occupied Territories: An Analysis of Palestinian- Israeli Relations

9308017 FARSOUN This project is a sociological study of the Israeli military court system. It will focus on how authority and resistance in the occupied territories interact in the court system. Data will be collected on the network of relations among the various categories of participants (Israelis and Palestinians), and on Israeli legal discourse about the occupation which provides the justification for Israeli legal authority. The study will cover three main topic areas. First, the investigator will conduct an ethnography of the roles, practices and relations of the Israeli and Palestinian participants. Second, the investigator will analyze the controversy over the military court system's legitimacy from the perspectives of the participants, especially the interaction between authority and resistance as it is negotiated in practice. Third, the investigator will conduct a sociological analysis of Israeli legal culture as it relates to the debate over the applicability of international law to Israeli authority over the occupied territories. ***